Molecular Dynamics of Fluid-Solid Systems

Several problems involving viscous flow near solid boundaries will be simulated numerically using molecular dynamics calculations. The effect of various wall rigidities and thermal properties will be investigated. In addition, lubricating layers, wetting films, and the motion of phase-change boundaries over a solid surface, both rough and smooth, will be simulated. The molecular dynamics approach is a semi-microscopic simulation of near-surface phenomena, and bridges the gap between microscopic and continuum theories. The justification for various boundary conditions used in continuum models will be clarified.